ITR/SY(PHY): Quantum Processing with Laser Trapped Atoms

Quantum information processing will be addressed using laser trapped neutral atoms as the fundamental unit of information. This component of a larger project will involve the effort to explore more flexible trap architecture based on arrays of tight-focus laser traps, which can overcome the limitations of optical lattices.